U.S.-Australia Cooperative Research: Radiative Interaction with Atoms and Molecules

This award supports a number of trips to Australia over a two year period by a team of American researchers under the direction of Dr. Thomas McIlrath of the University of Maryland to conduct collaborative research with a similar team of Australian investigators at the Laser Physics Center of the Australian National University working with Dr. Kenneth Baldwin. The primary goal of this research is in the application of high resolution molecular spectroscopy to short wavelength photoabsorption by atomic and molecular systems of atmospheric, astrophysical and theoretical importance. Extracting molecular parameters from measured line shapes will provide information needed to model temperature dependencies for atmospheric extinction measurements; temperature dependent models are very sensitive to the molecular line shape. This project will combine the expertise represented by the U.S. participants with similar expertise in Australia in the development and application of the highest monochromaticity short-wavelength research. The research has relevance both in its application to absorption processes in the earth's atmosphere, and associated environmental questions, and to fundamentals of our knowledge of line shapes and molecular potentials. The reciprocal visits by the Australian team members to the U.S. is supported through the Australian Department of Industry, Technology and Commerce (DITAC).